Structure/Function Studies of Long-Chain Bases

A new function for sphingosine and other long-chain bases has recently been discovered: in addition to serving as the backbones of sphingolipids, they also serve as inhibitors of protein kinase C. The goal of this project is to test the hypothesis that the cellular effects of long-chain bases depends on the precise structural requirements of several steps in their utilization, including: (1) the solution behavior of the molecules, including their association with proteins in the culture media; (2) the rate of cellular uptake and movement among cellular membranes; (3) the extent and course of metabolism within the cell; and (4) the interaction of the sphingosines with protein kinase C. To approach these issues, long-chain bases analogues will be synthesized. The structural specificity of protein kinase C inhibition will be evaluated in vitro using purified kinase C in a mixed micelle assay. The analogues will also be tested for their usefulness as inhibitors of the kinase in intact cells. The physical, chemical, and metabolic properties most likely to influence the utilization of these long-chain bases by the cells will also be measured. This work will provide valuable information about the basic biochemistry of sphingosine. In addition, it is hoped that the work will lead to the availability of useful kinase C inhibitors for studying the role of kinase C in the life of the cell.